Engineering Research Equipment: Dynamic Mechanical Equip- ment for On-Line Real-Time Monitoring and Control of Composite Curing

Composites are fast becoming important engineering materials for variouus application. Dynamic mechanical equipment will be purchased for conducting polymer processing research. Using this equipment, research will be conducted on on-line, real-time monitoring and control of composity curing. This technique will represent a versatile and reliable methodology in quality assurance, process control, and automation of composity production.